Topology of Anion Carrier and Acetylcholine Receptor

Kyte 9406321 The topology and functionally important conformational changes of acetylcholine receptor and anion carrier, two proteins in the plasma membranes of animal cells, will be examined with protein chemical and immunochemical techniques. Sealed right-side-out vesicles or intact cells will be used to determine on which side of the plasma membrane particular amino acids with reagents impermeant to the vesicles or the cells will be established by isolating peptides containing the modified amino acids by immunoadsorbents. Changes in the rate of modification of particular amino acids in anion carrier by neutral or charged electrophiles will be followed by isolating modified peptides by immunoadsorption. These results will implicate particular locations in this protein in functionally important structural changes. The topology of acetylcholine receptor will be correlated with recent high resolution structures of the protein. Both the topology of the protein and the conformational changes involved in the coupled anion transport catalyzed by anion carrier from erythrocytes will be related to the mechanism of its catalysis. In addition to being structurally interesting, these two proteins are of central importance to several physiological processes. Acetylcholine receptor transforms the neural action potential into muscular action potential at the synapse. Anion carrier is responsible for the bicarbonate transport across the plasma membrane of the of the erythrocyte which permits efficient transfer of bicarbonate from peripheral tissue to the lungs. %%% The plasma membrane is a thin bag that encloses the living cytoplasm of a cell. This bag protects the cytoplasm from the unexpected changes that occur on the outside of the cell, much as our skin contains and protects us. The passage of chemicals across the plasma membrane is carefully controlled. This control is enforced by proteins that are embedded in the plasma membrane. Each of these proteins acts as a gatekeeper opening and closing to permit particular molecules to pass through the membrane at specific times. We are studying a protein that is the gatekeeper for sodium and potassium ions and a protein that the gatekeeper for chloride and bicarbonate ions. The first protein is located on muscle cells and remains closed until a nerve cell and potassium to flow out, an event that causes the muscle cell to contract. The second protein is located on red blood cells and allows the cells to pick up bicarbonate in the muscles and transfer it to the lungs where it becomes carbon dioxide. We are studying the design of these proteins that permits them to perform these roles that are essential to the function of muscles and of the blood. ***